Modeling Motor Behavior and Virtual Environments for Three Dimensional Computer Animation (Computer and Information Science)

This project is concerned with the simulation and emulation of common motor behaviors. Its goal is a task-level animation system in which the animated agents perform certain simple but general kinds of problem solving in order to move among and interact with other figures and objects in their environment. Such a system would not require its human user to specify most of the details of what's to happen in the simulated world of interest. To that end, the investigator seeks to develop and implement a hierarchical, inheritance-based scheme for representing physical objects and their relationships, including common-sense knowledge about their uses, and to develop low-level motor control models based on inverse kinematics and finite-state control of jointed figures.